Oceanographic Instrumentation

9819976
Weingartner
This award to University of Alaska Fairbanks will provide instrumentation for oceanographic research for use on R/V Alpha Helix, a research vessel operated by the university's Seward Marine Center as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a replacement for their MOCNESS sampling system, sensors for use with their CTD (conductivity-temperature-depth) instrument, a carousel and sample bottles for sampling sea water, and computer and network components to upgrade the shipboard computer environment. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Gulf of Alaska and Bering Sea, in 1999 and future years.
***